Synthesis of Numerical and Field Studies of a Coastal Ocean:The Gulf of Maine System

Processes driving the baroclinic circulation in the Gulf of Maine will be investigated by using a three-dimensional numerical model. Extensions in the use of Finite Element Methods to complicated coastal regions will result as well as better understanding of circulation within the Gulf of Maine.